REU Site: Perceptual Science and Technology

This REU site brings eight undergraduate students to Rutgers each
summer for a ten-week research internship in the area of perceptual
science and technology. This research area centers on the challenges
and opportunities of building novel computational models that systems
may use to understand their environment and act intelligently in it.
The area affords a range of research methods, including designing
algorithms, building systems, gathering and analyzing data, and
understanding intelligence in its human context. Research projects
cover topics such as: computational approaches to the perception and
recognition of objects, faces, scenes, depth and motion; perceptual
categorization and perceptual decisions; data mining and statistical
analysis of perceptual input; search, attention, and visuo-motor
learning; visual experiences in human-computer interaction; and
computational depiction and design. The site strives to recruit and
support interns from underrepresented populations and to foster
collaborative research. Accepted students work closely with a faculty
mentor from drafting a project plan through carrying out and
presenting their research. Each project includes a pathway for two or
more interns to bring different results, data, or methods to bear on a
shared problem. The site holds workshops on research practice,
research ethics, skills for collaboration, and careers in perceptual
science and technology. Social events reinforce the sense of
community. The integrative, collaborative focus of the site offers
interns a deeper sense of range of the different careers, topics and
work environments available to them, and allows them to fine-tune a
match between their research plans and their personal goals,
backgrounds, and interests.

The site is co-funded by the Department of Defense in partnership with the NSF REU program